Interagency Agreement with NCES to Provide Detailed Data Tabulations from IPEDS (1991-92)

This effort supports various activities related to the National Center for Education Statistics' (NCES) Integrated Postsecondary Education Data System (IPEDS), to promote data comparability between agencies and improve the quality of data. The NCES' IPEDS data will provide the National Science Foundation (NSF) an essential portion of the statistics needed to establish comprehensive information on undergraduate education. IPEDS collects data from all institutions and educational organizations whose primary purpose is to provide postsecondary education, including much of the information that is needed from baccalaureate and higher institutions, and it is the only source of comprehensive data from two-year institutions. The current proposal will allow the Foundation to acquire detailed data for each postsecondary institution at an early date and to participate in the design of data editing criteria.